The Fabrication and Physical Properties of Integrated Metal and Semiconductor Nanocrystal Systems

9726597 Alivisatos This FRG/GOALI project is multidisciplinary, involving elements of Chemistry, Physics, Engineering and Materials Science. Professors A. Paul Alivisatos and James R. Heath at UCB and UCLA, respectively, are collaborating with R. Stanley Williams at Hewlett-Packard Laboratories. The aim of the project is to lay the groundwork for the demonstration and the development of nanocrystal(NC) and nanocrystal array(NCA) based devices by first developing techniques for synthesis of NC-based thin films appropriate for device applications, and by understanding and optimizing the properties of NC/x interfaces. A variety of potential applications, ranging from phosphors to photovoltaics to electronic switching and storage devices, are envisioned for these materials. The approach involves two aspects. The first is the development of techniques for integrating nanocrystals and nanocrystal assemblies into technologically relevant environments. The second is the development of a physical picture of how the integrated systems operate. Chemical techniques for fabricating nanocrystal integrated systems and examining their structural characteristics will be developed. Their optical properties will be interrogated with time and frequency resolved spectroscopies. Temperature dependent electron transport, photovoltaic, and capacitance measurements through integrated NC and NCA systems will be carried out using contacts produced by electron-beam lithography. Particular effort will be spent on controlling and characterizing the interfaces in these various systems. The project is co-supported by four NSF programs, and the MPS OMA(Office of Multidisciplinary Activities). %%% This project addresses forefront research issues in an interdisciplinary area of science and engineering having high technological relevance. The research will contribute basic knowledge at a fundamental level to important aspects of materials and devices, and will provide improved understanding and a basis for designing and producing improved materials and structures for devices of the future. An important feature of the program is the integration of research and education through the training of students in a fundamentally and technologically significant area. ***